U.S.-Korea Cooperative Research on Improving Friction Brakes by Eliminating Tribological Problems and Reducing Wear

9731221 Bryant This award provides funds to permit Dr. Michael D. Bryant, Mechanical Engineering Department, University of Texas at Austin, to pursue with Dr. Chung Kyun Kim, Department of Mechanical Engineering, Hongik University, Seoul, Korea, for 36 months, a program of cooperative research on improving friction brakes by eliminating tribological problems and reducing wear. The collaborators will seek to improve high speed brake systems through complementary efforts, with each researcher working to improve different aspects of disc brakes, later to be combined. The combined effort could result in efficient, long lasting brakes on high speed trains, airplanes, automobiles, and industrial machinery Dr. Kim will contribute a new disc design and will analyze nonlinear thermal behavior of the disc and brake pad system using the Finite Element Method. He will redesign materials and geometry on the disc to optimize removal of heat and minimize thermal expansion problems that lead to brake noise and premature brake wear. Dr. Bryant will contribute new brake pad and disc designs that incorporate patented techniques that reduce brake pad wear and extend (double) life. Cooperative research issues will focus on problems that arise when combining the two designs: (1) necessary redesigns of both systems, (2) solving any problems that would prevent the two systems from functioning in a combined manner, (3) extensive testing of the new brake system, and (4) technology transfer to industries in both countries. Doubling brake life and eliminating other tribological brake problems could save both societies billions of dollars. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mut ual benefit. This project provides an international research experience for a U.S. graduate student. It also will add an international cooperative dimension to ongoing research under NSF Grant No. CMS-9713942, supported under the Surface Engineering and Tribology Program. Korean participation is supported by the Korea Science and Engineering Foundation (KOSEF). ***